CT-ISG: Cryptography for Computational Grids

The computational grid is an emerging infrastructure in which scientists such
as physicists, biologists or astronomers can unite powerful remote computers,
sensors and databases to perform large-scale computations. However the grid
gives rise to many cryptographic and security problems that need to be
addressed. This project aims to provide practical solutions to these problems
whose security is justified via proofs of security. It will address numerous
specific problems. The first is access control, meaning ensuring that only
authorized entities (whether end-users or simply grid resources) can access or
modify data. To address this, the project will provide protocols for
dictionary-attack safe, password-based authentication. Next, the project will
consider sensor arrays that send out sensitive measurements. To ensure security
they will be signed. To save bandwidth, the project will provide methods to
compress the different signatures into a single compact one. (Previous methods
do not apply in this setting.) Finally the project will consider the protection
of data on grid databases via encryption, providing mechanisms for searches on
encrypted databases that are much faster than current ones, in particular being
of about the same cost as search on un-encrypted databases.